NSF I/UCRC Program - Center for Engineering Logistics and Distribution

An Industry/University Cooperative Research Centers planning meeting has been awarded to determine the feasibility of the University of Houston joining the existing Center for Engineering Logistics and Distribution (CELDi). The research proposed at the University of Houston site will expand the research base of CELDi by addressing the research areas of value-adding and recovery processing in logistics and distribution management. The research will focus on further technology development in areas related to Radio Frequency Identification, Lean Supply Chain Re-Engineering, and e-Business.